CAS: Understanding Molecular Oligomerization in Li-ion Battery Interphases via Mass Spectrometry

In this project, Professors Dongchang Chen of the Department of Chemistry and Ting Jiang of the College of Pharmacy at the University of New Mexico are developing a mass spectrometry-based method to reveal the molecular nature of interphases in Li-ion batteries. Due to the intrinsic chemical structures of electrolyte solvent molecules and the chemical driving force of the electrodes, the electrolyte solvent molecules can oligomerize, forming the matrix of interphases in batteries, i.e. the boundary volume between the electrodes and electrolyte. Understanding the molecular nature and the formation mechanism of the oligomers, both of which are key factors that control the properties of batteries, has been highly challenging. The goal of this research is to develop a mass spectrometry-based approach to fundamentally understand molecular oligomerization in the interphases and systematically reveal the influencing factors that control the speciation and evolution dynamics of the interphase-embedded large molecules. The project will advance the knowledge of organic chemistry, analytical chemistry, and battery electrochemistry all together, and will serve as a platform for the modernization of chemistry courses and workforce development. The research can lead to the advanced manufacturing of next generation of Li-ion batteries.

Driven by the nucleophilic & electrophilic reactions at the electrode-electrolyte interfaces in a Li-ion battery, oligomerization of carbonate esters contributes to the matrix of the solid-electrolyte interphase (SEI) and cathode-electrolyte interphase (CEI), both of which are property-determining components of the battery. The project will use mass spectrometry (MS), primarily employing matrix-assisted laser desorption ionization (MALDI) and additionally liquid chromatography–electrospray ionization (LC-ESI) methods, to reveal the nature and role of oligomerization in the interphases. Specifically, the team will achieve this objective by pursuing three aims, including 1) unravel the speciation of large molecules in SEIs and CEIs via a series of model electrodes and refine the method for MS-based speciation analysis, 2) understand the evolution and dynamics of large molecule deposition through MS-based quantification of the oligomer species, and 3) reveal the molecular nature of SEIs and CEIs in realistic batteries to correlate the chemical mechanisms to system-level electrochemical properties. The knowledge obtained and the MS-based analytical methods developed in this research will integrate several traditionally disconnected fields, establishing a new direction for understanding complex electrochemistry-controlled molecular systems.